A Research-to-Practice Symposium on Repair and Rehabilitation of Bridges and Pavements

9622212 Colucci This project is a symposium to facilitate the implementation of innovative research products and techniques for the repair and rehabilitation of bridges and pavements by State highway agencies affiliated with the Northeast Association of State Transportation Officials (NASTO). The one-and-a-half-day symposium, to be held in Providence, Rhode Island, in Spring 1996, will feature a day of presentations by invited researchers, followed by a half-day of interactive discussions with an audience of approximately 28 NASTO-affiliated engineers representing the 11 northeastern states, Washington, D.C., Puerto Rico, and the Virgin Islands. The objective of the symposium is to inform bridge and pavement engineers from NASTO-affiliated highway agencies of successful new techniques and materials which laboratory and field tests have shown can offer highway agencies solutions to bridge and pavement repair and rehabilitation that are more superior in performance and cost-efficiency to standard practices. After a day of presentations on successful new techniques and materials, the researchers will engage the audience of practicing engineers in a dialogue to (1) clarity their understanding of the new research products, (2) address their concerns about the feasibility of these products, (3) discuss barriers to implementation of these new products, (4) identify strategies to overcome obstacles and implement the new techniques and materials in pilot projects, (5) determine future research needs. A proceeding of the symposium will be published in the summer of 1996, and in 1997 NASTO will issue a follow-up report on the implementation efforts undertaken by the engineers in their respective highway agencies. ***